Geochronologic and Related Studies, Southern New England and Scandinavia

This study will continue geochronological and petrological analyses of deformational and metamorphic fabrics in the southern New England Appalachians. A recently developed microtextural/ geochronologic technique will be used to evaluate ages of deformational fabrics and will permit direct dating of shear zones. A related study in the Scandinavian Caledonides will be integrated with the New England study to evaluate and constrain tectonic models of the Appalachian-Caledonidian orogen. The results will be relevant to a broad range of tectonic problems in orogenic belts and will also further refine the techniques of direct dating of deformation.